The Robert Noyce Scholars Program at Indiana State University: Phase II Scholarship & Stipend

This Phase II project is awarding forty-one scholarships to twenty- three students fulfilling the requirements to become secondary mathematics and science teachers. Undergraduate scholarship recipients are selected from eligible mathematics majors and those interested in seeking a double major of biology, chemistry or physics and science education. A third year of scholarship support is available to the double majors. Individuals with a prior STEM degree may receive a one-year scholarship. The Noyce Scholars are enrolled in a teacher preparation program utilizing innovative problem-based learning pedagogies and clinical field experiences in high needs settings.

Vigo County School Corporation, the fifth largest public school district in Indiana, has partnered with Indiana State University in the Professional Development Schools program for the past fourteen years. This school system with a mix of urban, suburban and rural areas provides a range of field experiences for the Noyce scholars. The close relationship between the university and the Vigo schools is exemplified by more than half the Vigo County school teachers holding a degree from Indiana State University.